Electoral Accountability

Previous research on coalition formation in legislatures has focused on general hypotheses to derive predictions concerning which parties would agree to form a government. This generality implies a lack of uniqueness in the predictions, inhibiting their use as a basis for studying the preceding stage of interaction, namely that of actual election of the parties to the legislature. The goal of this research is to develop a model applicable to all types of coalition governments regardless of differing institutional arrangements (e.g. which party initially attempts to form a government) that structure the process of government formation. This project has as its motivation a deeper understanding of the institutional structures within which coalition governments form. These institutional structures typically generate strategic possibilities for the parties in terms of the proposals and concessions to make to other parties, on policy, cabinet portfolios, and so on. By employing the techniques of non-cooperative game theory, the investigators will generate predictions of coalition formation and legislative outcomes as a function of the institutional rule in place, thereby allowing for the comparison of the effects of different structures. These techniques will also allow the investigators to "roll-back" the analysis to the electoral stage, where the voters will be modeled with specific predictions of what will happen if they vote one way or another. In this way the investigators hope to unify the study of electoral competition and coalition formation in multi-party systems of government. Recent advances in non-cooperative game theory permit the development of these more sophisticated models. One of these advances has been toward relaxing the informational assumptions of previous work and allowing some participants to possess information that is both valuable, in that it effects payoffs to other participants, and private, in that no one else has it. The knowledge of exactly what it would take to convince another party to agree to a government is an example of such information. Incorporating these advanced techniques will result in a model that is both rich in strategic possibilities for the participants, and more realistic than its predecessors. This will enhance the theoretical unification of elections and coalition formation described above, and lead to a better comprehension of the motivations and behavior of participants in this type of political setting.